Mathematical Sciences: Matrix Analysis and Applications

This project will bring eight highly motivated and capable undergraduate students from among the region and the nation to the Williamsburg campus of the College of William and Mary during each of the next three summers. The students will spend eight weeks experiencing mathematical research first hand, with close faculty guidance. Faculty advisors will come from William and Mary's mathematics department, widely known for its research in matrix and operator theory. Students will work with faculty mentors, either individually or in small groups, on research projects in matrix theory and its applications that have been chosen by the faculty for their accessibility and appropriateness for well-prepared undergraduates. During the program, seminars on mathematics topics and field trips to nearby installations that employ mathematicians will be provided for the students. Informal discussion and interchange of ideas among students will be strongly encouraged. Each student or group will make several oral presentations and will prepare a final written report. In the past, such reports have been the basis for scholarly publications co-authored by the students and their faculty mentors.